Technician Support, R/V Cape Hatteras

0001275
Barber
This award to Duke University provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Cape Hatteras, a research vessel operated by Duke/University of North Carolina Oceanographic Consortium as part of the University-National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded researchers conduct oceanographic studies in the waters along the mid-Atlantic coast of the United States and Georges Bank region in CY2000 and beyond.
***